Aerosol Fractal Aggregates: Light Scattering, Diffusion, and Aggregation

ABSTRACT CTS-9408153 C. Sorenson Static and dynamic light scattering techniques will be developed to study properties of the fractal aerosol clusters, including morphology, diffusional transport, optical scattering properties and aggregation kinetics. Aggregates of particles formed through coagulation processes are described as fractals, which allows for improved measuring techniques and overall physical understanding. The experiments will be performed with carbonaceous soot aerosols in premixed flames, and silica and titania aerosols. The proposed measuring techniques have scientific relevance, and may be applied to studies related to aerosols and colloids in industrial processes, environmental aerosol analysis, combustion, and nuclear reactor safety. ***